An Experimental Study of Software Architectures and SoftwareReuse for Control of Unmanned Underwater Vehicles

9306252 McGhee This is a three-year cooperative experimental research program involving the Naval Postgraduate School (NPS) in the United States and Institut National de Recherche en Informatique et en Automotique (INRIA) in France. On the U.S. side, the principal investigators have many years' experience with robotic vehicles, and currently operate an advanced autonomous underwater vehicle (AUV) in a test pool environment on a routine basis. On the French side, INRIA supports a major laboratory in Sophia Antipolis concentrating on both mobile and fixed-base sensor-controlled robots. Their work has led to a three level software architecture for robot control surprisingly similar to an architecture which has been developed at NPS for AUV control. It is desired by both INRIA and NPS to conduct a cooperative experimental study involving a comparison of these two architectures, and to combine the best features of each to produce a new architecture to enable more timely, less costly, and more reliable development and archiving of software modules applicable across a variety of underwater vehicles.